Improvement Of Laboratories In Plant Physiology and Plant Ecophysiology At CU Boulder

Improvement Of Undergraduate Laboratories In Plant Physiology and Ecophysiology This project will provide for the modernization and restructuring of the laboratory course in Plant Physiology. The course itself is the major plant science course in the departmental core curriculum, and will permit undergraduates to employ modern techniques that are currently used in research. The equipment is also being used in two additional courses on physiological plant adaptations, in which undergraduates design their own experiments. The project is also expected to impact other courses in independent undergraduate research.